Atoms in Strong Laser Fields and Nonperturbative Quantum Electrodynamics

A non-perturbative treatment of the interaction of strong fields with atomic systems will be developed to study multiphoton ionization, scattering in strong laser fields and the Kapitza-Dirac effect.